Dynamic Forced Response of Rotor Bearing Systems Supported on Squeeze

9400029 San Andres A combined experimental and analytical study will be conducted of the flow mechanics of squeeze film dampers and their interaction with the dynamics of a rotor-bearing system. Operational regimes with dynamic cavitation will be emphasized. Linear and nonlinear interactions between the rotor and dampers will be quantified in the frequency domain. ***